Proton-Proton and Proton-Antiproton Colliding Beam Physics at CERN, Fermilab, and the SSC

This award covers experimental Elementary Particle Physics Research by a group at the University of California Los Angeles in collaboration with other NSF and DOE supported scientists. The group will continue studies on the possibility of doing B-meson experiments at proton accelerators. They will continue the analysis of diffractive proton scattering at the CERN proton-antiproton collider. The UCLA scientists will lead a test at CERN, Switzerland, that explores using data-driven parallel processors in heavy quark production experiments.